CONACyT: Integration of Logical and Probabilistic Models for Gesture Recognition with Mobile Robots

The main theoretical objective of the project is to develop a representation that combines the expressive power of logic with the robustness of probabilistic techniques, including the ability to learn and adapt from experience. To this end, the PIs intend to integrate inductive logic programming with Bayesian networks. Empirical validation of the approach within the context of a domain with potential high social impact will focus on gesture recognition by mobile robots, in order to build upon the expertise of the bilateral partners. The results of this research will significantly advance the state of the art in human-robot interface design.